Foundations of Complexity Theory

Complexity theory addresses the question of how much resource
is needed to solve a given computational problem. In recent
years complexity theory has found connections and applications
in many scientific and engineering disciplines. This project
plans to investigate complexity theory across a broad front.
The topics include communication complexity, decision trees,
quantum algorithms, quantum cryptography, and other foundational
issues in complexity theory. Te goal is to gain deep insights
into the nature of computation, so that one can most effectively
perform computational tasks in any model. It is expected that
a variety of algebraic and combinatorial techniques will be
called upon to explore these topics.

Two of the most interesting scientific developments in recent years
spring from the realization that complexity theory can be utilized
for cryptography, and that quantum mechanics can be used for
performing powerful computation. Advances in these fronts have
attracted interest from scientific communities at large,
as their relevance is far-reaching. The research of this project
could lead to substantial further progress in these two areas.

In the broader domain of public education, the Principal Investigator
has given many speeches in recent years on various topics on
complexity, cryptography and quantum computing. Many of these talks
are geared toward general audiences and often undergraduate students.
These lectures, if thoughtfully designed, can stimulate the
intellectual curiosity of young minds and develop their interest
in the computing sciences. With further advances of research in
these areas, one can expect that public awareness and interest
will be further enhanced to the good of a stronger scientific education.